CCLI-EMD: Development of a Finite Element Method Learning Environment for Undergraduates

"ABSTRACT"
DUE-0340889
Development of a Finite Element Method Learning Environment for Undergraduates
Worcester Polytechnic Institute
Joseph Rencis

Engineering-NEC (59) This CCLI-EMD proof-of-concept project is designing and developing a prototype open access finite element method learning (FEML)environment. Educational outcomes for FEML are based upon the criteria recommended by the Accreditation Board for Engineering and Technology (ABET).

The materials being created include one full-scale engineering case study in structural engineering and one mini-scale engineering case study. Both case studies use a holistic approach so that students will gain an understanding of the limitations of finite analysis methods. The e-learning objects being designed will support synchronous and asynchronous e-learning environments. The modules target students in mechanical, civil, aerospace and nuclear engineering programs. The project incorporates a full evaluation plan to determine the effectiveness of the curriculum as it is piloted in the Mechanical Engineering Department at Worcester Polytechnic Institute. A faculty development and teacher preparation component provides faculty with an understanding of how to effectively use this methodology to create learner centered e-learning objects, and how to deliver the technology by creating and developing rich e-learning environments.

The project is adapting Extensible Markup Language to conform to the IMS/SCORM specifications for e-learning to create the e-content for the e-learning objects. The e-learning objects being developed conform to national and international standards for e-learning in order for the material to become part of the National Science Digital Library through the projects website.